A New Technique to Evaluate Instantaneous Frictional Torque in Reciprocating Combustion Engines

The purpose of the research program is to develop and test a new method for the measurement of instantaneous reictional torque in reciprocating internal combustion engines. The method will allow for the measurement of time-dependent torque under transient conditions, as well as under constant speed conditions. The method utilizes the instaneous gas pressure and the instaneous angular velocity. The research will be extended to evaluate the method for single cylinder gasoline engines, as well as diesel engines, under various operating conditions. A mathematical model will be developed to relate theory and experiments.